The Effectiveness of Group Mergers

This is a Minority Research Initiation (MRI) Planning Grant proposal. The purpose of this proposal is to develop a specific model for which a process call decategorization can be demonstrated to be an effective technique for the reduction of intergroup bias within the group merger situation. This model can then be used to study various strategies and by comparison determine the most effective one for producing more successful group mergers. Planning grant funds will provide support for release time for a well- trained minority investigator. This release time will be used to conduct preliminary studies as a basis for the development of a competitive research proposal for submission to the MRI research initiation component.